Rigidity Phenomena in Geometry and Dynamics

Abstract

Award: DMS-0604857
Principal Investigator: Ralf Spatzier

The research proposed lies at the interface of dynamical systems
and differential geometry. Its principal goal is the
investigation of the dynamical and geometric structures of
"higher rank" systems. Such systems appear naturally in
dynamical systems, geometry and even other seemingly quite
differnt areas such as number theory. The investigator will
study rigidity properties of actions of higher rank abelian and
semisimple Lie groups and their lattices with the ultimate goal
of classifying such systems under suitable geometric or dynamical
hypotheses. In particular, he will study higher rank hyperbolic
abelian actions, and actions by semisimple groups and their
lattices preserving affine and geometric structures. The
investigator will also investigate rigidity properties of actions
of discrete groups in rank one semisimple Lie groups. In
addition, he will analyze Riemannian manifolds (especially higher
rank ones) and their geodesic flows. Geometric, dynamical and
group theoretic tools will be used in this research.

Dynamical systems and ergodic theory are relatively young fields
that investigate the evolution of a physical or mathematical
system over time (e.g. turbulence in a fluid flow). New ideas
and concepts from dynamics such as chaos and fractals have
changed our perception of the world fundamentally. Dynamics and
ergodic theory provide the mathematical tools and analysis for
these investigations. Dynamical systems have had a major impact
on the sciences and engineering. Symbolic dynamics for instance
has been instrumental in developing efficient and safe codes for
computer science. Tools and ideas from smooth dynamics are used
as far afield as cell biology and meteorology. Geometry is one
of the oldest fields in mathematics, and generally studies
curves, surfaces and their higher dimensional analogues, their
shapes, shortest paths, and maps between such spaces.
Differential geometry had its roots in cartography, and is now
studied for its close ties with physics and other sciences and
applied areas (computer vision e.g.) as well as internal
aesthetic reasons. Geometry and dynamics are closely related as
some important dynamical systems originate from geometry, and
geometry also provides tools to study dynamical systems. One
main goal of this project studies when two dynamical systems
commute, i.e. when one system is unaffected by the changes
brought on by the other. Important examples of such systems
arise from geometry.